Feedback Techniques for Integrating Power Management and Quality of Service in Servers

Increased awareness of power concerns and recent approaches to improve
energy efficiency and heat dissipation in computer systems have not
immediately translated into rich, adaptable, power-aware applications.
This lack of effectiveness is particularly evident in power-aware
real-time computing, where efforts to bridge the gap between hardware
and software have generally been limited to developing new schedulers
that operate by modulating a relatively high-level hardware control
such as voltage scaling and frequency scaling. The problem with this
approach is that the hardware controls operate at too gross a level to
be effective in dynamic, poorly-modeled application scenarios.

This project develops a feedback-based, control-theoretic approach to
optimize and balance, at runtime, power consumption and real-time
performance. This approach not only integrates hardware-level
power-management techniques with real-time and quality-of-service
(QoS) constraints, but also integrates a range of hardware
power-management techniques at different granularities into a unified
framework that allows better task-level control of power management.
This enables finer control of power/performance tradeoffs by the
operating system, and permits applications to dynamically adjust the
system's and chip's power-saving configuration on a per-task basis to
meet specific performance requirements while reducing power
consumption. With the new functionality provided by this project, a
richer class of power-aware applications can be developed to provide
valuable user experiences in next-generation, real-time environments.
The project specifically focuses the requirements of web server
farms where energy and cooling costs are substantial and where the web
services provide differentiated levels of QoS, thus motivating a
power-aware framework that balances performance, QoS requirements, and
energy costs.